Travel Funds for an International Workshop on intraplate Volcanism: The Polynesian Plume Province

9221169 McNutt Funds are provided for travel of US scientists to attend an international workshop on Intraplate Volcanism in the Polynesian Pluma Province to be held in Tahiti in August 1993. Scientists from France, UK, Germany and Austrailia will attend. The award will partially support the travel of 20 US scientistsfrom 11 institutions, including 7 graduate students and 2 post-doctoral investigators.